Scaling and Fractal Dimension in Chaotic Systems

0098632
Ott
This project studies several problems in which physical considerations motivate novel questions in chaotic dynamics. The problems include the investigation of chaotic scattering in higher dimensional systems, two-dimensional fluid turbulence with drag, and the transition of certain chaotic systems to bursting states. Although these problems are physically distinct, they are unified by their amenability to similar mathematical techniques.